Engineering Research Equipment Grant: Huber Goniometer and Detecting Equipment Upgrading for Thin Film Studies

Partial funding is provided to support purchase of a Huber goniometer and to upgrade X-ray detection equipment used for thin film studies. The equipment will allow high resolution X-ray scattering studies of order and structure in various types of thin films, including thin liquid crystalline films, ceramic and superconducting films and amorphous magnetic films.